Physical Studies of Biomolecules

The goal of this research is a quantitative understanding of the function of proteins in terms of their static and dynamic structure. Initially, the project was entirely an experimental and descriptive one but now the investigations are connected to fundamental physicochemical theories. Some specific goals include: 1) a continuation and expansion of the study of the properties and the classification of protein motions; 2) an expansion from simple proteins to more complex ones to understand protein function; and 3) a collaboration with theoretical chemists and physicists. The last is important not only for understanding protein dynamics and function but also for developing a deeper understanding of chemicl reactions and the physics of amorphous solids and gasses. Improved theories of chemical reactions in the condensed phase, molecular tunneling and protein motions and structure will be developed.